Renovation of Old Science Center at Delaware State University

Delaware State University (DSU), a Historically Black College and University, is the recipient of ARI funds to revitalize and consolidate science laboratories in the old Science Center. Constructed in 1964, the facility houses the Departments of Chemistry and Physics, but is inadequate to support research and training activities. Limitations include: poorly designed lab spaces, insufficient power and gas supplies, an aged HVAC system and dilapidated cabinetry and fixtures. Due to outdated facilities, specimen preparation for SEM work is performed at other institutions. Renovations to targeted laboratories will encompass: consolidating research space, upgrading HVAC, plumbing and electrical systems, and installing new fume hoods. Upon completion laboratories will comply with ADA and life safety codes. The renovations are essential to the growth of the departments and will enhance research and training capabilities of undergraduate and graduate students. The project will be instrumental in facilitating interdisciplinary research and establishing collaborations between DSU the and other institutions. Because of the University's historical mission, many African American scholars will enter the pipeline contributing to the nation's scientific infrastructure.